SHF: Small: Xsmith, A Configurable Generator of Highly Effective Fuzz Testers

This project is developing new techniques for the creation of highly effective
fuzz testers, also known as "fuzzers," for programming language compilers and
interpreters. Fuzz testing is an automatic and low-cost technique for finding
defects in software systems. A fuzzer randomly creates test inputs for a
software system; a fuzzer is effective if it can continually create test cases
that reveal defects throughout the system under test. It is difficult to
create effective fuzzers for programming language compilers and interpreters
because these systems have highly structured inputs, but it is important that
such fuzzers exist. Programming language implementations are critical software
infrastructure: defects in compilers and interpreters can potentially have
great costs in terms of software correctness and reliability, human
productivity, and computer security. This project seeks to reduce the time and
human effort needed to create sophisticated fuzzers for programming language
implementations. In so doing, this project is expected to advance the state of
the art in random software testing, improve the quality of several programming
language implementations selected for study, and produce new open-source
software tools that programmers can use to develop new and more effective fuzz
testers.

The techniques developed by this project will be embodied in a new generator of
fuzz testers, called Xsmith. Xsmith will generate language fuzzers from
specifications and thus reduce the time and effort required to create fuzzers.
More importantly, Xsmith will inject sophisticated program-generation
techniques into the language fuzzers it creates. This project will investigate
three techniques in particular. This first is generation-time analysis,
intended to allow Xsmith-derived fuzzers to create output that is both complex
and meaningful. The second is feature subsetting, intended to increase the
likelihood that Xsmith-derived fuzzers will output bug-triggering test
programs. The third is iterative refinement, intended to further diversify the
outputs from Xsmith-derived fuzzers. The project participants will use Xsmith
to create fuzz testers for a varied set of programming languages. Where
possible, the bug-finding power of Xsmith-derived fuzzers will be compared to
that of existing fuzzers: quantitatively, in terms of the number of
identifiably unique defects found within a fixed test-time budget, and
qualitatively, in terms of the kinds of defects uncovered. This evaluation
will allow the investigators to assess the impact of the techniques embodied in
Xsmith, both individually and collectively, over a range of programming
language implementations. Xsmith will be successful if it permits highly
effective fuzz testers to be constructed with significantly less ad hoc code,
and thus significantly less effort, than if they had been constructed from
scratch.